FTIR Spectroscopy in Undergraduate Laboratories

The project is a major step in the continuing enhancement of the inorganic and instrumental capabilities of the chemistry program. A Fourier transform infrared spectrometer and associated computer software has been purchased for use by the students in the laboratories beyond the freshman courses. The students are thereby gaining direct experience with a modern spectrometer and benefit from its speed and accuracy in their laboratory assignments. The students are also gaining direct experience with the power and convenience of the computational routines that are possible with digitized data. The grantee is matching the award from non-Federal sources.